Statistical Mechanics of Interfaces

They will continue the study of interfaces which divide co- existing phases of material, with the first two parts directed toward well defined and immediate goals. In the last part they propose problems which would require more time and thought, but applicable in a broader context of physics. (A) In an on-going exploration of systems with anisotropy, this part deals with both equilibrium and non-equilibrium crystal shapes. In particular, they will extend the study of effects of external forces (e.g., gravity) to include other types of fields and in three dimensions. For non-equilibria, they intend to investigate droplet shapes in a driven lattice gas system. (B) Within the context of dynamics, the interplay between bulk and interface fluctuations will be explored. (C) The long-term projects concern dynamics at first order transitions, effects of external forces on surface tension, and inclusion of curvature, torsion and Chern-Simons terms in studies of geometric objects beyond interfaces.